National Surveys of Science and Mathematics Teachers

This project includes two national surveys of science and mathematics teachers. In the first survey, teachers who participated in the 1985-86 National Survey of Science and Mathematics Education but have since left the teaching profession will be interviewed by telephone about attitudes toward teaching, and salary and working conditions while teaching and in their current occupation. For comparison purposes, a subsample of those who are still teaching will also be interviewed. As a result of this research, a better understanding of the relative importance of various factors in decisions to leave teaching will be gained, and potentially effective strategies for decreasing the attrition rates of science and mathematics teachers will be identified. The second survey will be conducted in conjunction with the National Assessment of Educational Progress (NAEP). NAEP already plans to collect data from the mathematics teachers of each eighth grade student included in the 1990 mathematics national assessment. This project will enable NAEP to collect data from eighth grade science teachers as well, allowing investigation of the relationship between teacher and classroom characteristics and student performance in science. In addition, after adjusting the teacher weights appropriately, this project will provide estimates of the course background preparation and other characteristics of science and mathematics teachers in the nation as a whole.